Monitoring Defects in Polymer Composites using Laser Induced Surface Acoustic Waves (SAW)

Abstract

The equipments procured through this award will be used to develop sensors based on Laser Induced Surface Acoustic Waves (SAW), Laser Induced Breakdown spectroscopy (LIBS), Laser Induced Fluorescence Spectroscopy (LIF) and Surface Enhanced Raman Spectroscopy. It is planned to develop a device for nondestructive inspection of fractures, faults and changes in chemical bonding of composite materials due to aging. The proposed instrument will be based on the fusion of two laser based independent diagnostic techniques called as Laser Induced Surface Acoustic (Ultrasonic) Wave (SAW) imaging and Laser Raman Spectroscopy.

The experimental facilities will enable researchers at Tuskegee University to conduct fundamental research, as well as development of sensor-oriented research. This research will develop a bridge between structural integrity as detected nondestructively and the design related properties of materials as determined mechanically using standard test methods.